Partial Support of a Workshop to Assess the Status of Thermal and Calorimetric Measurements in Heterogeneous Catalysis: Post Congress Symposium

ABSTRACT CTS-9530048 Funds are supplied to support a postcongress symposium on calorimetry to be held July 7-10, 1996, in Mayaguez, Puerto Rico. The symposium will follow (and be linked to) the Eleventh International Congress on Catalysis. Funds are used mainly to support travel between the Congress site in Baltimore and the symposium site in Mayaguez.